CSR: Small: A Server-Centric Approach to Data Center Networks

Data centers have become the main networking infrastructure to
support online services, ranging from end-user applications (e.g.,
Web search and IM) to distributed system operations (e.g., GFS and
MapReduce). In this project, we explore a different design paradigm
to data center networks (DCNs). We take a new server-centric
solution approach, in contrast to the switch-centered paradigm. We
push intelligence into servers, which generally have more open and
standardized hardware architecture and software platforms. Multiple
layers of low-cost, commodity off-the-shelf, mini-switches are used
to connect servers. We leverage the large number of servers in a
data center. Even when each server just adds one more link to the
rest of servers, we obtain many links in the DCN system given the
large server population. These added links, without using high-end
switches but using only mini-switches, provide the foundation for
enhancing scalability, inter-server capacity, and fault tolerance.
Taking the approach, we can design DCNs with high scalability,
enhanced fault-tolerance, and high inter-server capacity, and better
support data center applications that exhibit various traffic
patterns of one-to-one, one-to-several, one-to-all, and all-to-all
communications. Our design also opens more space for stimulating
innovations in the DCN software through the more open programming
platform on servers, while abandoning expensive, proprietary core
switches. The results in scalable and modular data centers and
associated management tools are expected to show that, the added
complexity into servers will incur only minor systems overhead but
produce large performance gains.